I-Corps: Translation Potential of a Handheld Standoff Photothermal Spectroscopy System for Real-time Indication of Viral Epidemics

This I-Corps project is focused on the development of an innovative. non-invasive, diagnostic tool for viral infections. The technology is able to provide rapid, accurate, and real-time detection of influenza, respiratory syncytial virus, and COVID-19. The tool's portability ensures that it can be widely distributed, making it accessible in a variety of healthcare settings, including clinics, hospitals, and in remote areas with limited medical infrastructure. By enabling early and precise diagnosis, this tool can improve patient outcomes, reduce the spread of infectious diseases, and alleviate the burden on healthcare systems. Furthermore, its scalability and low manufacturing costs position it as a viable option for mass production and global distribution, addressing urgent public health needs.

This I-Corps project utilizes experiential learning coupled with a first-hand investigation of the industry ecosystem to assess the translation potential of the technology. This solution is based on the development of a method to determine multiple pathological conditions simultaneously. The solution detects the infrared signatures produced by the resonant excitation of certain molecules using a tunable source. This approach achieves a limit of detection that is orders of magnitude higher than available nanosensors. By applying machine learning techniques to analyze the nanomechanical infrared response profile, multiple pathological conditions can be identified simultaneously. This device is capable of continuous miniaturization, making it portable and affordable for widespread deployment.